Asymptotic and Singular Perturbation Methods for Bifurcation Problems with Applications

Erneux
9973203
The investigator and his colleagues study a series of new
mathematical problems appearing in the area of laser stability
problems and in the area of biochemical oscillators. The laser
problems are singular perturbation problems that result from the
different time scales of the laser dynamical variables or that
appear in the study of delay-differential equations modeling
semiconductor lasers. All these problems are motivated by
experiments that are done in collaboration. The biochemical
oscillator problems are also singular perturbation problems that
appear in models of cascading enzyme reactions describing, for
example, mitosis.
An important part of the research activities concentrates on
laser instabilities. Lasers are used in many applications
(communication, surgery) and are part of our every-day life
(laser printers, bar code reading at the supermarket, CD
players). But these lasers are often unstable devices.
Mathematical difficulties in analyzing the responses of these
lasers have prevented their control. The investigator and his
colleagues propose to use more advanced mathematical techniques
in order to solve these problems.